The Influence of Sediment Dynamics on Molecular and Microfossil Proxy Records

This proposal is funded to determine the relationships between molecular (e.g. alkenone) and microfossil (e.g. Mg/Ca in foraminfera) proxies in marine sediments and their use as paleothermometers.